Survey of Science Museums

The Association of Science-Technology Centers, representing some 170 science museums, receives regular requests for information on the status of science museums, their education programs, exhibits and other activities. To respond to this need, the organization will collect and analyze data on the status and activities of both member and non-member science museums. The material will be published as three reports and made available on computer disks for further study. The information is particularly useful to communities considering new museums, and to trustees and contributors to current museums and others who have an interest in the priorities and policies of education and exhibits programs. The project will be assisted by an advisory committee and Dr. Sue Smock, Director of the Center for Urban Studies, Wayne State University.